Wonderwise 4-H

9909496
DIAMOND

The University of Nebraska State Museum (UNSM), in a partnership with Nebraska Cooperative Extension 4-H, is developing a series of informal science education modules that focus on bringing engaging science activities to young people -- especially girls aged 8-12 in rural communities. These kits or modules will feature the research and life stories of women scientists who will be strong role models for these youth. The modules are correlated to 4-H curriculum in the topics of food safety, water geology, remote sensing in agriculture and range management. The modular kits will contain an activity book, a biographic video, a CD-ROM and the associated hands-on materials to do science activities for understanding the science concepts discussed and illustrated by the featured researcher.